Undergraduate Research in Mechanicqal Engineering: REU Site

The Mechanical Engineering Department of the University of Minnesota, Institute of Technology has a program of summer research in mechanical engineering for science and engineering undergraduates. Fifteen students (seven from ME, eight from other schools) participate in the program. Applicants for the program are asked to submit transcripts, letters of recommendation, and an essay. Participants are selected by a panel of faculty members. The program starts with an orientation in which research projects and facilities are described. Participants are asked to select a project on which to work from a group of twenty ongoing research programs in Mechanical Engineering. A faculty supervisor monitors the progress of each student. Students are given increasing responsibilities as their skills develop. Students are asked to attend biweekly seminars which explore current research areas in Mechanical Engineering. The students live on campus in dormitories close to one another so that they may share their research experiences. An informal social program is organized. At the end of the summer, students are asked to prepare oral and written reports on their research activities. An attempt is made to find on-campus research jobs for students who do well in the program.